The University of Michigan Digital Libraries Research Proposal

This project conducts research that will lead to the implementation and deployment of a digital library testbed and environment of textual, video, still image, and data sets, from both primary and secondary information suppliers. The project will make available capabilities and services to a large number of users at multiple locations. The basic approach is one of self-assembling agent based federation of distributed collections. The testbed is an extension of existing DIRECT and TULIP projects. The testbed content is primarily concerned with the earth and space sciences. The testbed will proceed in three releases, each incorporating additional information and making available more advanced capabilities. Usage and user evaluations will be reincorporated into the testbed to contribute to rational system evolution.